REU Site: Solar Physics Research

This project will provide undergraduate students with hands-on research opportunities in a variety of scientific disciplines. Students from across the United States will be selected to participate in intensive research projects, working closely with researchers who offer mentorship and guidance. Students will gain valuable scientific skills, professional networks, and career exploration, strengthening the workforce of outstanding scientists and engineers.

This REU site focuses on solar physics and provides a unique opportunity to conduct research at a scientific center, support ongoing instrumentation missions, and apply knowledge to real world challenges. The students will develop skills in computer programming, data analysis, numerical modeling, engineering of instrumentation, scientific communication, and ethics of scientific research through independent research projects and collaboration within a cohort of researchers. These experiences will prepare students for the workforce and provide them with the tools to address current and future space weather challenges.